7th International Inuit Studies Conference

This grant supports an international and interdisciplinary forum for the exchange of research by and for representatives of Inuit communities and researchers and scholars principally from the U.S., Canada, Greenland, Denmark, and the USSR. The Conference theme "Looking to the Future" focuses on current cultural and social changes facing northern and indigenous communities. This is the first time the biennially convened Conference will be held in the United States, is expected to attract more than 400 participants and will have over 80 presenters. The Conference and its proceedings will enhance international cooperation among arctic nations and its people. Agency funding of this Conference directly supports the intent of the Arctic Research and Policy Act of 1984 and provides the opportunity for the National Science Foundation to develop the objectives of its recently approved Arctic Social Science Research Program.